Higher Spin Curves and Cohomological Field Theories

The Investigator studies intersection theory on and the
cohomological field theory arising from the moduli of algebraic
spin curves and stable spin maps. Especially important in this
study is the exploration of the plethora of similarities between
Gromov-Witten theory and cohomological field arising from higher
spin curves and spin maps. Also important in this research is the
study of the many relations between these cohomological field
theories and integrable hierarchies, including significant recent
progress toward proving some remarkable conjectures like the
W-algebra conjecture and Generalized Witten Conjecture.

The research in this project is concerned with connections between
algebraic geometry and physics, and it has implications for both
subjects. Algebraic geometry, which is the study of solutions to
polynomial equations, and especially the sub-discipline of
algebraic curves, which is one of the main foci of this research,
have many applications. The most notable of these applications
are in secure electronic communications (cryptography and error
correcting codes). Recent research has shown that algebraic
geometry also has significant ties to high-energy physics and
plays an important role in helping us understand the fundamental
nature of the universe. Conversely, physics has helped us better
understand some important aspects of algebraic geometry and its
applications. This research is focused on studying and further
developing some of these important links.